Meeting: First US-Sponsored Ustilago maydis Conference, Asilomar, California, March 13-14, 2017

Ustilago maydis is the causative agent of gall formation and subsequent "corn smut disease" on maize and is the leading model for studying the fungal plant pathogens that collectively are responsible for huge annual losses of marketable food and fiber. The project will organize the first US-sponsored Ustilago maydis conference for March, 2017, at Asilomar, CA. Though this would not be the first international meeting that brings together researchers in the Ustilago community to present their foremost research and to coordinate efforts of the community, it would be the first in the United States. The largest research centers for work with this model plant pathogen are located in Germany and in Mexico. Previous meetings have occurred in those locations, with each host country providing support to defray costs for those traveling to the meetings. With downturns in the world economy and the Mexican peso, meeting organizers have been unable to continue this process since 2010. Especially, Mexican (and some Spanish) researchers have been unable to attend meetings outside their country, even when organizers have attempted to meet at other well-established meetings, such as the Fungal Genetics Meetings. The International Ustilago conference will take place March 13-14, 2017, just prior to the next Fungal Genetics Meetings at Asilomar. The groups from Germany, Canada, and some in the US, are easily represented at the Fungal meeting and would have little difficulty attending this special conference a few days prior. On the other hand, the Mexican investigators would require financial assistance to attend this meeting. The main purpose of the grant will be to support attendance of otherwise under-represented researchers to the meeting: approximately equal numbers of students from Mexico and labs in the US, especially where the US students lack funds to attend. This will provide cultural interchange between these two groups, as well as with the rest of the Ustilago research community. Broader impacts include providing a template for expanding the future research community to include otherwise under-represented groups of students. Emphasis will focus on selection of supported students/post-docs for oral and poster presentations; the meeting will also provide mentoring on opportunities for lab visits in other countries, as well as future post-doctoral options for current PhD students, and transitions from post-doctoral to permanent positions. This will also be explicitly promulgated at a mentoring lunch during the Ustilago Conference.

U. maydis is a well-established model for molecular studies of fungal mating-type regulation, dimorphism (morphogenesis) and biotrophic pathogenesis. These areas of biological and agricultural interest can be experimentally addressed because the defined sexual cycle of U. maydis allows classical genetic experimentation and superb molecular genetic tools (e.g., transformation, gene disruption/replacement, protein tagging, functional genomics/transcriptomics) are available. To extend this technical infrastructure and facilitate its use, continued research community development and intellectual inputs are required. Mexican and Spanish students and post-doctoral researchers will be recruited to the meeting. An added reservoir for new interest in the Ustilago and related systems are labs in the US with trainees from under-represented groups. These types of students will also be recruited. This is important if we are to produce the next generation of researchers for this important model system.